AMP: Alliance for Minority Participation

The University of Alabama at Birmingham (UAB) AMP proposal seeks funds to support the creation of an alliance between eight historically black colleges and universities (Tougaloo College, Miles College, Alabama A&M University, Oakwood College, Talladega College, Stillman, Alabama State University, and Tuskegee University) in the "Deep South" with UAB serving as the lead university. Alabama A&M is the only institution listed other than UAB that offers a doctorate degree in an NSF fundable academic area. The UAB AMP also has considerable business support with the Coca-Cola Foundation, Rust International Corporation, Minnesota Mining and Manufacturing Company already on board. The fundamental goal of the proposed alliance is to increase significantly the number of minority scholars that complete the B.S. degree in NS&E areas. The UAB AMP Program will attempt to increase the number of science and/or engineering students on the nine campus alliance by using a comprehensive and longitudinal approach involving thirteen programs that focus at different points along the "academic pipeline". The P.I. is requesting support for five of these programs. Many of the other programs are currently supported by off campus sources ( including businesses, Federal government, local sources) or from UAB. The five programs to be supported in part from NSF are: o AMP Scholars, o Summer Research Internship Program, o Science and Engineering Drop-in Centers, o High School and College Science Campus, and o Instructional Enhancement Program. UAB AMP will couple these five programs with the existing programs. The P.I. presented a unique diagram tying together all the elements in the UAB AMP pipeline programs. The complete list follows: o The Titusville 200: Partnership for excellence program, o Grade School and Middle School Science Camp, o Pre-college Summer Research Internships, o High School Summer Research Internships, o HBCU Summer Research Internships, o College Summer Research Internships, o Undergraduate Scholarship, o AMP Scholars, o Science and Engineering Drop-in Centers, o High School and College Science Camp, o Instructional Enhancement Program, o Graduate Fellowships, o Postdoctoral and Visiting Faculty Fellowships, and o Faculty Recruitment, and Faculty Retention activities. The UAB AMP programs are located in a region with a high minority population; the potential impact of this alliance is significant.